Dynamics of Suubglacier Water Routing and Characterization of the Basal Hydraulic System

This award is for support of a project to measure subglacial water pressure, turbidity, electrical conductivity, and flow velocity beneath a non-surge type glacier for a continuous period lasting two full years. Measurements will be made directly at the glacier bed in boreholes having known trajectories. The data that is collected will be used to test and refine existing theories of subglacial drainage, and to construct and verify a generalized model of basal hydrology.